Organization of the Integrated Photonics Research Topical Meeting

The following are topics to be discussed at the Optical Society of America sponsored conference on Integrated Photonics. (A) Photonic devices and circuits to guided-wave devices, circuit integration, fiber and waveguide coupling, semiconductor lasers and amplifiers, quantum well waveguide devices, signal processing and sensors. (B) Nonlinear guided- wave phenomena, nonlinear phenomena, stimulated scattering, photorefractive phenomena, multiphoton processes, squeezed states, solitons, pulse compression, third-order all optical switching phenomena, nonlinear couplers and spatial solitons, second harmonic generation and nonlinear waveguide materials. (C) Modeling, numerical simulation, and theory, modeling, numerical simulation, or theory of photonic devices and materials. (D) Physics, materials, technology, and characterization. Electrooptic, optic-optic, acoustooptic, magnetooptic mechanisms, optical interactions in semiconductor interaction between optical radiation and electrical carriers in semiconductors; new materials structures and compositions; new materials growth, diffusion, ion-exchange, etching techniques; and new techniques for characterizing photonic devices or processes or materials used to fabricate them.